Surface Raman Spectroelectrochemistry of Carbon Electrodes

This research project, supported in the Analytical and Surface Chemistry Program, uses Raman spectroscopy to monitor electrochemical intercalation and lattice damage on ordered graphite and glassy carbon electrodes. Instrumentation development to enable the detection of monolayer adsorbates on the carbon surfaces is also planned. The overall objective of the research is to determine the connection between electrode structure and reactivity, to enable the rational design of improved carbon electrodes for electrocatalysis and detector applications. %%% Raman spectroscopy will be used in this research project to study the structure of intercalated carbon electrodes, and to obtain information about the nature and structure of adsorbates on the surface of these electrode materials. This information will be useful for the design of better electrocatalytic materials, and possible carbon electrode based gas detectors.